Travel: Student Travel to Crypto 2023

Cryptography is one of the foundational elements of cybersecurity. Crypto is a top-tier, peer-reviewed, highly selective conference in cryptography, attracting students, researchers and industry specialists from all over the world. The scope of research papers accepted to Crypto range from theoretical foundation of cryptology to application and implementation of cryptographic schemes.

The requested funds will be used to support student travel awards, and underrepresented groups will be especially encouraged to apply. Students who otherwise would not be able to attend will be given the chance to deepen their knowledge modern cryptography research and meet researchers and other students.